A Conference on the Van Hiele Model of Geometric Thought

In 1957 in the Netherlands, Pierre Marie Van Hiele and his wife Dina Van Hiele - Geldof postulated a model of the development of geometric thought. The model, which posits the existence of discrete levels of geometric thinking and phases of instruction that help students progress through the levels, explains why many students have difficulty learning geometry. Since l979 three major research studies have investigated the validity of the Van Hiele model and its applicability to American Schools. The project will convene 30 people (the principal investigators and senior personnel from previous Van Hiele - based research, scholars from mathematics education, psychology and computer science, local supervisors, and teacher trainers) for a two and one half day conference at Syracuse University. The objectives of the conference are (1) to analyze, synthesize, and evaluate recent research on the Van Hiele model; (2) to examine alternative models of geometric thinking; (3) to plan ways to utilize current research results in developing materials for students and teachers of geometry; and (4) to outline directions for future research. Conference proceedings will be disseminated via a book of scholarly papers edited by the conference organizer, via journal articles and other professional publications, and via workshops and lectures by conference participants at professional meetings.